Pseudoholomorphic curves in low-dimensional topology

The goal of this project is to develop new topological invariants in
the framework of Floer homology. A major part of the project is to
develop "embedded contact homology", a new invariant of contact
three-manifolds which counts embedded pseudoholomorphic curves in the
four-dimensional symplectization of the three-manifold. Embedded
contact homology is conjecturally isomorphic to a version of the
Seiberg-Witten or Ozsvath-Szabo Floer homologies. It provides a
bridge between the topology of smooth manifolds in three and four
dimensions, and the geometry and dynamics of holomorphic curves and
contact structures. Another part of the project is to construct
Floer-theoretic invariants of families of equivalent objects for
different versions of Floer theory, thus obtaining homotopy invariants
of families of three-manifolds, symplectomorphisms, Legendrian knots,
and other types of objects for which Floer theory can be defined.

This project fits into the broad theme of developing tools to
understand the possible global shapes of three- and four-dimensional
spaces, such as the universe that we live in. The tools used here to
understand the shape of a space involve counting interesting geometric
objects inside the space. An important class of such objects are
pseudoholomorphic curves, which are surfaces resembling soap films.
By counting the number of such surfaces that exist in a space, one can
gain deep information about the global structure of the space.